NSF Young Investigator

9357226 Ashoori This is a New Young Investigator Award for research on the condensed matter physics of nanostructures. The work employs a spectroscopic technique developed by the principal investigator, to quantitatively probe quantum levels in nanostructures. The new technique is termed single-electron capacitance spectroscopy, and allow the detection of small numbers of electrons confined to quantum dot nanostructures. The technique will be used to study problems in localization, many-body phenomena, and defect level structures in nanostructures. %%% This is a New Young Investigator Award for research on the condensed matter physics of quantum "dot" nanostructures: collections of hundreds to thousands of atoms. The work employs a spectroscopic technique, developed by the principal investigator, to quantitatively probe quantum levels in these nanostructures. The new technique is termed single-electron capacitance spectroscopy, and allow the detection of small numbers of electrons confined to quantum dot nanostructures. The technique will be used to study problems in localization, many-body phenomena, and defect level structures in nanostructures. These phenomena are of fundamental interest and potential technological relevance to ultra-small-scale electronic devices. ***